RUI:Hyperbolic 3-Manifolds and Knots

In 1978, William Thurston revolutionized low-dimensional topology by
demonstrating that many 3-manifolds have hyperbolic metrics. The Mostow
Rigidity Theorem then implies that these metrics can be used to generate
interesting invariants to distinguish hyperbolic 3-manifolds. A tremendous
number of results have come out of these ideas. The goal of this proposal
is to further understand hyperbolic 3-manifolds. In particular, there are a
set of invariants that come out of the cusps of hyperbolic 3-manifolds, and
hyperbolic knots, including the cusp volume, the meridian length and the
longitude length. The plan is to continue to work on these invariants,
delineating better their possible range of values and determining their
implications for the rest of the hyperbolic structure. Moreover, recent
work has demonstrated the existence of totally geodesic surfaces in
hyperbolic knot complements. Their existence is suprising and exciting. It
is hoped that a determination can be made as to which knots possess such
surfaces.

Understanding hyperbolic 3-manifolds has implications for determining the
shape of the spatial universe. These invariants will be the kind that
cosmologists may use to empirically identify the universe. Although recent
measurements of the cosmic background radiation point to a curvature very
close to flat, this could mean that the universe is hyperbolic, but very
large. Then more subtle hyperbolic invariants will be necessary to
determine its topological shape.